Kant and Contemporary Philosophy of Science

Within the history of philosophy, Immanuel Kant stands as the towering figure serving as a kind of watershed in modern philosophy. His task, as he saw it, was to resolve the scepticism concerning the nature of knowledge, especially scientific knowledge, which had been generated by the English philosopher, David Hume. Hume essentially argued that there are only two kinds of knowledge: analytic which is true by definition and synthetic which is contingent and can never be known with certainty. Kant introduced a third category of knowledge, the synthetic a priori, which is knowledge about the real world which is not simply true by definition, and which can also be known to be true with certainty because the human mind is structured a priori to perceive things according to these fixed categories. Euclidean geometry and Newtonian physics were examples for Kant of scientific knowledge which must be true about the real world. Unfortunately for Kantian theory, within a few years of its enunciation, non-Euclidean geometries were developed. Within a century, Einstein replaced Newton's physics with one based on a non-Euclidean geometry. Given these facts, philosophers have tended to dismiss Kant's philosophy of science. Dr. Friedman argues that such a dismissal is short-sighted and that Kant's philosophy of science has an enduring philosophical significance. While Kant's philosophy should indeed be seen as based on a commitment to specifically Euclidean geometry and specifically Newtonian physics, nevertheless, it is still worthy of careful attention today. For, on the one hand, Kant has a particularly acute grasp of the physics and mathematics of his time. His insight into the foundational issues surrounding space, time, and motion in Newtonian theory is unparalleled, and his work therefore illuminates the status of these fundamental physical concepts even from a sophisticated modern point of view. Yet on the other hand, our own philosophy of science develops by evolving directly from Kant's: by attempting to adjust basic Kantian themes to the revolutionary development of non-Euclidean geometry and non-Newtonian physics. Dr. Friedman will show in detail how Kant's conception of the necessary and a priori character of the principles of both Euclid's geometry and Newton's physics makes perfectly good sense in the context of 17th and 18th century science. At the same time, however, it will be possible to illuminate the radical changes that have since occurred. In particular, Dr. Friedman's study aims to shed light on the emergence of logical positivism as the dominant philosophy of science of the first half of the 20th century. This study thus promises to make a major contribution to our understanding not only of Kant's philosophy of science but also of our own contemporary understanding of the development of science.